ROW: Double Layer Relaxation of Colloidal Suspensions

A Research Planning Grant is sought in connection with the establishment of a physics research laboratory. The research will comprise a study of the stability of colloidal suspensions in aqueous solutions in the presence of alternating electric fields. Computer simulations will also be carried out, aimed at developing a possible model for the system.